LEXEN: Biology and Ecology of South Pole Snow Microbes

9713990 Taylor PROJECT SUMMARY The interior ice sheets of the continent of Antarctica have always been assumed to be devoid of indigenous organisms. While plants, protozoa, and bacteria are present at the fringes of the continent, the combination of low temperatures, long periods of darkness, and the absence of liquid water make the interior extremely hostile to life. However, recent examination of snow from the South Pole indicates the presence of microbes which contain DNA and photosynthetic pigments. Snow samples were collected at South Pole station in January 1997 and flown immediately to the Crary Lab at McMurdo Base. Examination of snowmelt using epifluorescence microscopy showed the presence of rod shaped particles approximately 1 X 2.5 um in size and a concentration of 130 (sd=64) cells per ml. The particles fluoresced orange under blue excitation light and reddish-orange under green excitation, indicating the presence of phycobiliproteins and chlorophyll. These fluorescence signatures combined with the particles' shape suggests that they are cyanobacteria. Subsequent analysis using fluorescent DNA stains and scanning electron microscopy confirmed the presence of DNA containing microbes identical in shape to the autofluorescing particles seen with epifluorescent microscopy. Further research will confirm whether these microbes are indigenous to the Antarctic interior and investigate their biology and ecology. The discovery of organisms capable of survival in interior Antarctica would provide us with new insight into the adaptability of life. Their biomolecules and metabolism must be unique and could have great value for molecular engineering research.